Investigation of a New Compressed Representation of Boolean Functions

CCR-9986308
Reps, Thomas W.
University of Wisconsin-Madison
Investigation of a New Compressed Representation of Boolean Functions

The goal of the proposed project is to advance the state of the
art in symbolic model checking by investigating the properties of
a new compressed representation of Boolean functions, called
CFLOBDDs, which are an alternative to the now-standard Ordered
Binary Decision Diagrams (OBDDs). CFLOBDDs share many of the
good properties of OBDDs, but can lead to data structures of
drastically smaller size -- exponentially smaller than OBDDs, in
fact. That is, an OBDD is a data structure that -- in the best
case -- yields an exponential reduction in the size of the
representation of a Boolean function (i.e., compared with the
size of the decision tree for the function). In contrast, a
CFLOBDD -- again, in the best case -- yields a doubly exponential
reduction in the size of the representation of a Boolean
function. Although not every Boolean function has such a highly
compressed representation, the project with see how far this
idea can be pushed. The hope is that doubly-exponential compression
is a tool that would (a) permit verification to be performed much
faster, and (b) allow much larger verification problems to be attacked
than has heretofore been possible.